CAREER: High-efficiency and low-noise microwave-to-optical transduction enabled by waveguide-based acoustics

Non-technical description:
Quantum information science is on the verge of significantly improving humankind’s technology. The research project will facilitate the development of universal quantum computers with important societal impacts, including medicine development, cybersecurity, and material discovery. Quantum computing systems based on superconducting circuits are one of the most promising platforms for quantum information science. However, such superconducting quantum computers must scale far beyond current sizes to reach their full potential with groundbreaking impacts. Distributed quantum computing with modular Quantum Processing Units (QPUs) connected by optical quantum links offers a promising solution to this scaling issue. In such a hybrid distributed scheme, an efficient and low-noise quantum transducer between microwave and optical fields is pivotal. However, it is challenging to achieve high efficiency and low noise at the same time due to the incompatibility between superconducting and photonic components. In this project, we will explore a new transduction method based on itinerant acoustic fields to mediate the transduction between optical and acoustic fields, significantly improving the transduction efficiency and noise performance at the same time.
The education plan will help to develop the US quantum workforce. The training of industry employees will provide immediate support for current quantum technology development. Research opportunities for undergraduates and support for high-school science teachers will help to open pathways into the future quantum workforce.

Technical description:
In this project, we propose to explore a new chip-scale transduction scheme – the use of acoustic waveguides to spatially separate superconducting and photonic parts in microwave-to-optical transducers. The transduction is realized by cascading the piezoelectric process and optomechanical process, which are separated over large distances. This is in sharp contrast to previous chip-scale transducers, where the superconducting and photonic parts were co-located in close proximity. This can solve the trade-off between efficiency and noise in the microwave-to-optical transduction, thus pushing the frontier of distributed quantum computing based on superconducting circuits and photonic networks.